Galeras Volcanic Complex, Colombia: An Integrated Study of Andean Volcanism

The principal investigator will study the Galeras Volcanic Complex, Columbia, utilizing geologic/petrologic/isotopic techniques. He will attempt to understand this volcanic complex in the context of other volcanoes in the region. He will attempt to understand the functioning of the present volcanic center; this will have import- ant scientific consequences, as well as important consequences for residents threatened by the volcano. The PI will investigate degassing and associated seismicity, the amount and source of released volatiles, and he will address eruption forecasting for this region.